Reducing I/O Pin Requirements for VLSI Processors

Recent increases in VLSI processor speeds have not been matched by proportionate increase in the number of I/O pins that connect processors to off-chip memory. Bandwidth between processor and off-chip memory has become the primary constraint to VLSI system performance. A compression scheme know as Dynamic Base Register Caching (DBRC) has been developed that reduces address pin requirements by a factor of two without incurring a significant performance penalty or implementation cost. This work will be extended along several fronts to further reduce bandwidth requirements between processor and memory. (1) Schemes that have the potential to achieve even higher levels of compression by exploiting successor information to predict address references will be explored. (2) Analogous compression schemes for data will be investigated. (Preliminary measurements show that data, like address information, is highly redundant, so a simple compression scheme may be possible.) (3) Finally, trace data will be analyzed to establish tight upper and lower bounds on the information content of address and data reference streams. Accurate bounds will indicate how much compression is possible, as well as how much schemes can be improved.